A Thematic Workshop on, "Drilling into High-enthalpy Geothermal Systems: A Collaborative Initiative to Promote Scientific Opportunities".

In an effort to advance Continental Scientific Drilling in the USA, DOSECC is organising a
series of topical workshops. The workshop proposed here has two objectives, firstly to advance
scientific studies of active high-enthalpy hydrothermal systems, and secondly to foster collaboration
between academic scientists, government agencies, and industry. Such collaboration is highly
desirable because the scientific study of active hydrothermal systems requires drilling and
sampling boreholes whose costs far exceed budgets normally available to academic scientists,
whereas the geothermal industry commonly drills wells that access them.

The Iceland Deep Drilling Project (IDDP) represents an excellent example of such a collaboration.
From the outset academic scientists have been deeply involved in that project. The IDDP is
investigating the economic feasibility of producing electricity from supercritical geothermal
reservoirs. To test this concept an industry consortium planned to drilled a deep well in
the volcanic caldera of Krafla. However drilling had to be terminated at 2.1 km depth when
900C rhyolite magma flowed into the well. Today the well is highly productive, estimated to
be capable of generating >35 MWe of dry superheated steam at a well-head temperature of ~440C.
There is a significant undeveloped potential for developing high-enthalpy geothermal systems
in the western USA, Hawaii and Alaska. Although drilling into these deep unconventional geothermal
reservoirs is more expensive, the higher productivity per well should offset this.

It is proposed to compile and distribute a report that addresses industry's interest, abilities,
research needs, and potential for collaborative projects that drill high-enthalpy systems.
This will be based on the results of a broadly distributed questionnaire, and a three day
workshop with participation by industry, government and university scientists. Hopefully this
will help create a national program that enhances the scientific, technological and institutional
basis for the development of new and more economic sources of alternative energy.